Metal-Metal Bonded Halides and Related Materials

The primary objectives of this research are: 1) to synthesize new and novel materials among the metal-rich halides and chalcogenides of the early transition metals, and 2) to characterize the new materials physically. The proposed studies will feature a unique group of compounds in which metal cluster and condensed cluster phases are stabilized by strongly bound, interstitial elements. The cluster hosts will include Sc, Y, the lanthanides, Zr, and Hf; the halides will be Cl, Br, and l; the chalcogenides S and Se. Also, the solution chemistry of centered zirconium clusters will be studied to provide both an understanding of their ligation reactions and routes to new solid materials. Physical properties of the interesting phases will be defined. Emphasis will be given to the nature of bonding and to infinite chain structures which afford hetrometal arrays.